Studies in Continuum Mechanics and Materials Science

ABSTRACT
This research is toward developing mathematical models for material
behavior at a phenomenological level. The goal is a continuum-mechanical
framework for the study of materials that provides a basis for general
theories and leads to relevant problems. Proposed are studies involving
incoherent phase transitions, dislocations in the presence of atomic
diffusion, and grain-boundary motion.

The growing alliance of nonlinear continuum mechanics and analysis has
led to significant advances in the understanding of materials; important
consequences are new ways of understanding defects and microstructures
and the ability to predict macroscopic properties as well as detailed
behavior at the microscopic level. This project is meant to continue
this thrust.